Genetic Control of Organ Development in a Simple Eukaryote

The primary objective of this project is to elucidate the molecular mechanisms by which a cloned gene called Frt1 induces development of mushrooms (fruiting bodies) in the woodrotting fungus Schizophyllum commune. Analysis of the protein sequence predicted from the corresponding cDNA, and other data, indicate that Ftr1 encodes a membrane- associated protein that functions through some form of self versus non-self recognition and that its activity is influenced by activity of the mating-type genes and a linked genetic element. These concepts will be tested by the following methods:1) a tag to determine the location of FRT1 within cells. 2) Employ the techniques of in vivo mutagenesis to start determining which parts of the Frt1 sequence are essential for activity. 3) Isolate and start characterizing the linked DNA sequence which, in addition to Frt1, is essential for fruiting this will be done using the method of DNA-mediated transformation to test the sequences flanking Frt1 for their ability to restore the fruiting phenotype in the appropriate Frt1 deletion mutations. 4) Isolate and start characterizing an alternate allele of Frt1 by using Frt1 , and/or flanking sequences, as probe to a clone bank of an alternate strain of S. commune. %%% Mechanistic concepts elucidated by studying genetic regulation of this important developmental process in this relatively simple eukaryote should be applicable to an understanding of similar processes in more complex, less accessible organisms.